Approximating Production Functions with Neural Networks

Artificial neural network (ANN) algorithms are now used in a wide spectrum of disciplines including neurophysiology, electrical engineering, computer science, mathematics, and the cognitive sciences. But only a small number of economists have used these powerful statistical methods because of their heavy computational demands and because the theory to rigorously test hypotheses and make efficient estimates using ANN does not yet exist for the types of problems faced by economists. This project explores a promising method called simulated annealing that could significantly reduce computational costs and permit rigorous hypothesis testing for economic problems. More specifically, the grant permits the investigator to purchase additional processors for his computer so that he can use simulated annealing algorithms for constrained optimization. The additional processors will improve the performance of the computer and allow the estimation of more realistic economic models. The project tests the ability of ANN models to approximate classical production function using experimental production data from agricultural economics.